NSFNET: Green River Community College Connects to the World

9522029 Booth This project connects Green River Community College to the Internet over a T1 (1.544 million bits per second) line. Faculty and students at the school benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.